RIA: Modeling of Multilayer Nanostructure Magnetic Thin Films

Recent experimental studies have shown that many extraordinary magnetic properties can be achieved in multilayer nanostructure polycrystalline thin films, e.g. high coercivities. In this proposal, a computer modeling study is proposed to simulate the microscopic magnetization processes and structures in the multilayer nanostructure film. The main objective of the study is to understand the mechanisms for those extraordinary magnetic properties and to be able to suggest new film nanostructures for developing more advanced magnetic thin films. Important physical quantities and intrinsic material properties, such as crystalline structure and interfacial properties are included in the model. Ferromagnetic exchange and magnetostatic interactions are included. Microscopic magnetization configurations and their dynamic behavior are obtained by solving coupled Landau-Lifshitz equations. In this study, small size magnetization structures are to be discovered and behavior of these structures which determines the film magnetic properties will be characterized. Correlations between film magnetic properties and film nanostructures, intrinsic material properties, and interfacial properties will be obtained. Superparamagnetic constraint on the film microstructures will be investigated. In this study, we will also search for optimum film structure and material properties in developing the film for ultra- high density magnetic storage applications. This modeling study will be combined with experimental research on the same type of films. Available experimental results and information on material and microstructure will be used to verify and improving the modeling at all stages of the study.